Orchestrating Communication in High-Latency Parallel Environments

Technological advances in computer architecture and communication technology, coupled with economic factors, have led to the development of a variety of parallel computing environments with high message latencies. Examples include mesh- and hierarchical-ring-based multiprocessors, and networks of workstations. Many algorithmic techniques that ensured efficient interprocessor communication (at least with high probability) in the tightly coupled, small- diameter parallel machines of the past no longer guarantee efficiency in the new environments. This project is dedicated to developing and analyzing communication-scheduling algorithms that ensure: (A) efficient parallel computation in networks of workstations; (B) efficient execution of dynamically evolving computations in "ring-like" multiprocessors (including chordal rings, express rings and hierarchical ring networks); efficient orchestration of variable-length communications on ring-like networks. Both analytical and experimental methods will be invoked to craft and evaluate algorithms that achieve these goals. This project has complementary goals: (1) to gain theoretical understanding of factors that enhance --- and detract from --- efficiency of interprocessor communication in high-latency parallel environments, and (2) to develop algorithmic techniques that translate such understanding into provably efficient communication strategies.